Mathematical Sciences: Algebraic and Geometric Topology

Taylor will do practical and theoretical calculations for group rings of finite groups. He intends to study classification of manifolds and their neighborhoods via approximate fibration theory. He intends to study Pin structures on manifolds with special attention to the low-dimensional cases. Finally, he intends to calculate invariants for function spaces and related objects. Dwyer will study the uniqueness of classifying spaces and, indeed, any space whose loop space is a finite complex. He intends to develop the theory of pi-algebras as a tool in homotopy theory. He intends to study various realization problems via a lifting of diagrams approach. He intends to study Andre-Quillen cohomology and apply the results to the Lie ring analyzer of M. Barratt. Williams hopes to prove an equivariant A-theory Novikov conjecture, as this would give a proof of the L-theory Novikov conjecture. He will study the forget-control map in approximate fibration theory and intends to use such results to study various geometric questions. He intends to use approximate fibrations to study manifolds and their neighborhoods, in particular, the equivariant and codimension-2 case. He intends to modify surgery theory to give calculations of the group of automorphisms of a manifold rather than the group of blocked automorphisms. The totality of investigations, by the three faculty members involved cut a wide swath through topology. Some topics attempt to enhance the algebraic machinery for classifying manifolds. Others are more directly geometric. Problems range from targets of opportunity, which arose in the course of the investigators' recent work, to a famous conjecture by the Russian topologist S. P. Novikov, which has resisted many attacks for years but has recently shown some chinks in its armor.